Student Travel Support for the 25th IEEE International Conference on Network Protocols (ICNP)

ICNP 2017, the 25th annual edition of the IEEE International Conference on Network Protocols, is a conference covering all aspects of network protocols, including design, analysis, specification, verification, implementation, and performance. This award supports partial travel costs for graduate students enrolled in United States academic institutions to attend the conference. Depending on fund availability, postdoctoral researchers and faculty members from underrepresented groups that are employed in US institutions will also be considered for travel support. ICNP 2017 will be held in Toronto, Canada, from October 10th to 13th, 2017.

This travel grant aims to broaden ICNP participation by lowering the financial barrier of attendance for graduate students and postdoctoral researchers at institutions in the Unites States. Enabling students and postdocs to attend a high-quality conference at an early stage of a researcher's academic career is a wise investment in the future of the field. Providing opportunities for attendance to underrepresented students in particular will result in a greater diversity of ideas that will be discussed during the conference. One goal of this award is to encourage women and minorities to participate in a high-quality research event.

Research in network protocols is advanced by the interactions of participants at conferences such as ICNP. The travel support will have a significant impact in at least three ways. First, graduate students who would have been unable otherwise to attend ICNP will be greatly benefited by listening to the speaker's talks and participating in resulting discussions. Second, even the ICNP participants that will not receive the grant will be indirectly benefited by the presence of the grant recipients. Since the award committee will make an effort to select a diverse group of students, the demographics of the conference will become more diverse as well. Finally, the research community as a whole will be positively impacted by the continuing success of the ICNP. The participation of scholars at early stages of their careers, some of which come from underrepresented groups, will advance training and the quality of the next generation of research leaders in the field.